da Vinci Scholarship Program: Promoting the Integration of Engineering, Business, & Art to Inspire Ingenuity

This S-STEM scholars program provides scholarships for undergraduate and graduate students to encourage rising juniors to pursue a five-year master's degree via the da Vinci Center for Innovation in Product Design and Development. The da Vinci Center combines the disciplines of engineering, business, and art in a single venue and provides a framework for teaching and practicing the science and art of product development. Students who participate in the center will be engaged in the creative, technical and commercial elements that comprise successful product development. Approximately 91 scholarships will be provided during the life of this grant award; scholars will participate in peer mentoring and living learning communities.